"Greater Yellowstone Adventure:" Three Interconnected Exhibit Galleries Exploring the Relationships Binding Humans and Nature in the Greater Yellowstone Area

The Buffalo Bill Historical Center will develop the "Greater Yellowstone Adventure project," encompassing 1,719 square meters of exhibits in the Center's newly constructed Draper Museum of Natural History. The exhibits and associated programming constitute a major cultural and educational resource for underserved residents of rural, northwestern Wyoming and approximately 500,000 annual visitors to the region. The goal of Greater Yellowstone Adventure is to promote understanding of the relationships binding humans and nature and the use of science in exploring those relationships. The exhibits are orgainized into three galleries: Expedition Trailhead, Braided Paths and Tangled Destinies, and Seasons of Discovery.